POWRE: Diagnosing Interacting Defects Using Cue Combination Types

EIA-9870454
Reed, Nancy
University of California-Davis

POWRE-CISE: Diagnosing Interacting Defects Using Cue Combination Types

This project is the start of research effort for the PI who is currently an Adjunct Assistant Professor. The objective of the project is to refine and generalize an existing computational model for diagnostics. The model uses the classification on how cues are altered when defects interact and a metric called evidence points for rating possible solutions. The model applies the metric to compare as many alternative solutions as are necessary for each case. The value of the metric is based on the evidence in the case, so the justification for the ranking of each alternative solution is available. This information is useful when developing the knowledge-base and also provides valuable information to anyone using it for decision support.